The Nitrogen Isotopic Composition of Diatom Resting Spores in Southern Ocean Sediments: A Source of Bias and/or Paleoenvironmental Information?

The chemical composition of diatom fossils in the Southern Ocean provides information about the environmental history of Antarctica, including sea ice extent, biological production, and ocean nutrient distribution. The sea ice zone is an important habitat for a group of diatoms, largely from the genus Chaetoceros, that have a unique life cycle stage under environmental stress, when they produce a structure called a resting spore. Resting spores are meant to reseed the surface ocean when conditions are more favorable. The production of these heavy resting spores tends to remove significant amounts of carbon and silicon, essential nutrients, out of the surface ocean. As a result, this group has the potential to remove carbon from the surface ocean and can impact the sedimentary record scientists use to reconstruct environmental change. This project explores the role of resting spores in the sedimentary record using the nitrogen isotopic signature of these fossils and how those measurements are used to estimate carbon cycle changes. The work will include laboratory incubations of these organisms to answer if and how the chemistry of the resting spores differs from that of a typical diatom cell. The incubation results will be used to evaluate nutrient drawdown in sea ice environments during two contrasting intervals in earth history, the last ice age and the warm Pliocene. This work should have significant impact on how the scientific community considers the impact of seasonal sea ice cover in the Southern Ocean in terms of how it responds to and regulates global climate. The project provides training and research opportunities for undergraduate and graduate students. Ongoing research efforts in Antarctic earth sciences will be disseminated through an interactive display at the home institution.

The work proposed here will address uncertainties in how Chaetoceros resting spores record surface nutrient conditions in their nitrogen stable isotopic composition, the relative impact of their specific signal with respect to the full sedimentary assemblage, and their potential to bias or enhance environmental reconstructions in the sea ice zone. Measurements of nitrogen stable isotopes of nitrate, biomass, and diatom-bound nitrogen and silicon-to-nitrogen ratios of individual species grown in the laboratory will be used to quantify how resting spores record nutrient drawdown in the water column and to what degree their signature is biased toward low nutrient conditions. These relationships will be used to inform diatom-bound nitrogen isotope reconstructions of nutrient drawdown from a Pliocene coastal polyna and an open ocean core that spans the last glacial maximum. This proposal capitalizes on the availability of Southern Ocean isolates of Chaetoceros spp. collected in 2017 for the proposed culture work and archived sediment cores and/or existing data.